Electronic Design Automation of VLSI Circuits

A laboratory for design of Very Large Scale Integrated (VLSI) circuits is established at Loyola College to train undergraduate computer science and engineering students in electronic design automation (EDA). The laboratory project supports mainly a new course which includes MOS transistor and CMOS circuit theory, semiconductor manufacturing techniques, automated design techniques, simulation of designs, and testing of circuits. Each team of two students designs a complete custom integrated circuit in a single semester using engineering workstations and public domain EDA software. The major benefit to other institutions is the conversion of the EDA software from expensive high- maintenance workstations to cheaper Intel 80386-based personal computers. This award is being matched by an equal amount from the principal investigator's institution.